Research Initiation: Design and Analysis of a Hierarchical Snooping Cache Coherence System for a Bus-basedMultiprocessor

The design and analysis of a cache coherence system for hierarchical bus-based shared-memory multiprocessors is being carried out. The bus protocol is compatible with the Futurebus IEEE896 specifications and can be easily utilized in the next generation of general purpose bus- based shared-memory multiprocessors. The goals of the design are on low memory access time, low bus utilization, and cost effective hardware. The stochastic colored Petri net simulation software developed can be utilized as a powerful simulation technique in the analysis of many other concurrent computer systems. The concurrent software developed can alleviate the problems of simulations on a sequential computer. The principal investigator is a new Ph.D. who already has significant progress in his research. The research focuses on important and timely topics. Support is highly recommended.